Research on the Anderson metal-insulator transport transition and otherphenomena in disordered systems

The subject of this research proposal is the Anderson metal-insulator transport
transition and other phenomena in disordered systems. A new approach to the Anderson
metal-insulator transition based on transport instead of spectral properties will be
investigated. In addition, several related topics will be investigated. Constructive
criteria for localization in random media will be developed; an application is planned
for the Landau Hamiltonian with a random potential. Local Poisson statistics for the
strong insulator spectrum of Anderson-type Hamiltonians in the continuum will be
studied. The spectrum of the Anderson model on the Bethe lattice will be studied.
Localization at low disorder in one or two dimensions will be investigated.

Fortysome years have passed since P. Anderson's seminal article on localization of
electrons in random media, but our mathematical understanding of the metal-insulator
transition is still very unsatisfactory. In three or more dimensions a transition is
believed to occur from an insulator regime, characterized by localized states, to a
very different metallic regime characterized by extended states. The energy at which
this metal insulator transition occurs is called the mobility edge. The standard
mathematical interpretation of this picture is that there should be a transition in the
spectrum of the random SchrAdinger from pure point spectrum (localized states) to
absolutely continuous spectrum (extended states). But up to now there are no
mathematical results on the existence of continuous spectrum and a metal-insulator
transition (except for the special case of the Anderson model on the Bethe lattice). A
new approach to the Anderson metal-insulator transition is proposed based on transport
instead of spectral properties. It is motivated by the fact that the intuitive physical
notion of localization has a dynamical interpretation: an initially localized wave
packet should remain localized under time evolution, and delocalization may be
interpreted as nontrivial transport. The main goal of this proposal is to show the
existence of such a transport transition.